Digital Signal Processing Laboratory Enhancement

This project builds on an already existing digital signal processing laboratory at this institution. The extensions to this lab include a software development system, analog interface boards, dynamic signal analyzers and personal computers. Using this equipment, students gain an understanding of the concepts of design trade-offs in digital filtering and spectral analysis. This award is being matched by an equal sum from the grantee.